Baroclinic Circulation around Islands and Ridges

9818337
Spall

The project is for a modeling study of circulation around islands in a low stratified ocean. The focuses are on what determines the mean and low-frequency variability, and the extent to which islands inhibit communication between basins. Idealized and more realistic numerical models will be used in conjunction with theoretical studies, laboratory experiments, and data analysis.